1997 Particle Accelerator Conference; Vancouver, BC, Canada

One of the highest priority activities for the future of elementary particle physics is the development of new accelerator techniques. This conference will allow the exchange of the latest information in this field and this funding will enable students to learn about the state-of-the- art in this rapidly changing area.